String Compactifications: From Geometry to Effective Field Theory

This award funds the research activities of Professors Lara B. Anderson, James Gray, and Eric Sharpe at Virginia Tech. String theory is a proposal for a fundamental theory, combining quantum mechanics and gravity, in which the roles of physics and geometry are intrinsically intertwined. While the questions that string theory attempts to answer are physical, the path to those answers frequently involves cutting-edge challenges in modern mathematics. This award will fund a collaborative program of research to explore the physics that arises from the geometry of string theory. This work will strengthen the links between string theory and current progress in particle physics by developing new foundational tools for the subject of string phenomenology. In addition, Professors Anderson, Gray, and Sharpe will further bound and characterize the geometries arising in solutions of string theory. This work will include the development of state of the art techniques from Machine Learning and Artificial Intelligence in this context. Experience shows that when strong physical requirements are expressed in the language of geometry, they can open the door to new and unexpected results in both physics and mathematics. As a result, research in this area advances the national interest by promoting the progress of science in one of its most fundamental directions: the discovery and understanding of new physical law and the deep geometry underlying it. This project is also envisioned to have significant broader impacts. Professors Anderson, Gray, and Sharpe will involve junior scientists in this work, including a postdoctoral researcher and several graduate students, thereby providing critical training for junior physicists beginning research in this field. The PIs' efforts will also include the organization of conferences and workshops that will increase dialog between physicists and mathematicians on pressing problems at the boundary of both fields.

More specifically, a new class of symmetries (known as generalized symmetries), and two of the most flexible frameworks for four-dimensional compactifications of string theory, heterotic string theory and F-theory, will be investigated. Within the context of generalized symmetries, decomposition is the name given to the fact that quantum field theories with certain higher-form symmetries are equivalent to disjoint unions of other quantum field theories. A detailed study of decomposition will be carried out, expanding our understanding of this phenomenon. Within heterotic string theory, novel descriptions of the physical and geometric moduli spaces, topology-changing transitions, and novel tools from machine learning will be used to compute previously undetermined aspects of the effective theory. These will include the N=1 matter field Kahler potential and physically normalized Yukawa couplings, including non-perturbative contributions. The goal of this study is to understand the space of vacua of the theory and the masses and interactions of particles which those vacua give rise to. In the context of F-theory, new results in the geometry of elliptic fibrations will be used to study the possible boundedness of the set of smooth Calabi-Yau varieties, heterotic/F-theory duality, and the explicit four-dimensional field dependent form of flux contributions to the superpotential.